MRI: Acquisition of Instrumentation for an Undergraduate Research Program in Fluvial Biogeochemistry

0116487
Andersen

This award made through the Major Research Instrumentation (MRI) Program, provides support for the acquisition of a suite of instruments to be used in biogeochemical research on surface waters from anthropogenically impacted and pristine rivers in the Piedmont of the southeastern U.S. Researchers and students at Furman University in Greenville, SC in addition to students and faculty from other liberal arts institutions that are a part of the Associated Colleges of the South, will have access to the following: an autoanalyzer for measurement of nutrient concentrations (i.e. NO3-, PO43-); a coulometer system for the determination of the organic carbon load in natural waters; and a fluorometer for the measurement of chlorophyll a. This instrumentation will complement existing analytical instruments at Furman and will advance teaching and training of undergraduate students in the southeastern U.S. with modern analytical methods in aqueous geochemistry.
***